Conference: Algebraic Cycles, K-Theory and Modular Representation Theory: Progress and Prospects; September 16-19, 2004

DMS-0354924
Roy Joshua

This grant will partially support a conference which will bring together
many of the world's leading mathematicians to survey current developments,
report on recent progress, and anticpate future developments in algebraic
cycles, K-theory and modular representation theory. The link between
these topics is the blend of algebra and algebraic geometry, influenced by
techniques and motivation from algebraic topology. Progress in algebraic
cycles, with related results in algebraic K-theory, has been dramatic.
The principal contributors to motivic cohomology which underlies this
progress, Bloch, Suslin, and Voevodsky, have agreed to participate.
Related investigations include work of Lawson, Lichtenbaum, Walker, and
Weibel, all of whom have agreed to participate. Developments in modular
representation theory involving cohomological techniques such as support
varieties have also generated considerable excitement, and some of the
leading researchers in this area (Benson, Nakano and Parshall) will also
participate in this conference.

The occasion of this conference is the 60th birthday of Eric Friedlander;
the venue is Northwestern University, Evanston, Illinois, from Thursday,
September 16- Sunday September 19, 2004. Indeed, most of the lecturers
will be mathematicians who have collaborated with Friedlander on aspects
of the topics mentioned above. The conference plans to support participation
by a number of young people, at both the post-doctoral and advanced graduate
student level, so that it will serve to stimulate increased interest and
participation in these exciting mathematical topics. For details please
see http://www.math.northwestern.edu/conferences/friedlander